Automatic Validation of Improving Transformations and Related Applications

Proposal Number: CCR-9904943

Title: Automatic Validation of Code Improving Transformations
and Related Applications

Investigators: Robert van Engelen, David Whalley, and Xin Yuan

Abstract:

Ensuring that software systems execute correctly is vital. One portion
of this process is to ensure that the compiler produces machine code
that accurately represents the algorithms specified at the source code
level. This is a formidable task since an optimizing compiler not only
translates the source code to machine code, it may apply hundreds or
thousands of code improving transformations to even a relatively small
program. This project will use two approaches that dramatically simplify
the validation of code improving transformations. First, the equivalence
of the program representation before and after each improving
transformation will be checked, rather than attempting to equate the
source and object programs directly. Each individual code improving
transformation typically consists of only a few changes. Second, only
the region of the program that has changed, as opposed to the entire
program representation, will be checked. The regions of the program
representation that are changed by an improving transformation are
typically quite small. The equivalence will be shown by demonstrating
that the effects of the region on the rest of the program will remain the
same before and after the improving transformation. The benefits include
simpler diagnosis of compiler errors and more reliable compilers.